CAREER: Frontiers of Continuum and Fracture Mechanics in Geology and Geophysics

Over the last decades, dramatic improvements in the quality and
quantity of geophysical and geodetic observations revealed rich
rheologic and brittle behavior of the Earth materials under the wide
range of stress and temperature conditions. These observations exposed
the applicability limits of the existing theories of deformation, and
opened new exciting opportunities in the field of geological
mechanics. The proposed research activities will focus on
interdisciplinary studies of the rheologic and fracture properties of
the Earth's lithosphere using natural and man-made sources of
deformation. The lithosphere is believed to respond to tectonic and
volcanic loads in a variety of ways, ranging from a predominantly
elastic deformation to brittle failure, viscous creep, and plastic
yielding. However, the bulk mechanical properties of rocks that govern
the large-scale deformation are still poorly known. Detailed knowledge
about the mechanisms of rock deformation is essential for
understanding a number of fundamental geological and geophysical
processes, such as the earthquake cycle, mountain building, rifting of
the lithosphere, volcanic activity, etc. While significant insights
into the constitutive properties of rocks have been obtained from
laboratory experiments, extrapolations of the laboratory measurements
to the crustal-scale deformation have proven to be difficult. The
proposed research will take advantage of recent advances in (i)
space-based geodetic observations of the Earth, (ii) available
computational power, and (iii) modeling capabilities to address these
problems. Robust inferences about the mechanisms of rock deformation
are important from a societal perspective, as they directly bear on
the issue of seismic and volcanic hazards in populated tectonically
active areas.